The RIDGE 2000 Office, 2001 - 2004

This project provies funding for the RIDGE 2000 program office, for meetings of the RIDGE 2000 Steering Committee, and for convening workshops and meetings in support of RIDGE 2000 science.